A Novel Method to Eliminate Internal Resonances in Acoustic Scattering from Fluid Obstacles

This research is to develop a scheme that eliminates internal resonances in wave scattering problems. In particular waves in fluids impinging on fluid objects will emphasized. The wave scattering problem will be reformulated in order to accomplish these objectives. The internal resonances are troublesome in numerical solutions.